Muonium in Semiconductors

The objectives of the proposed work are to study muonium defect centers in semiconductors by muon spin rotation an muon level- crossing resonance and thereby provide information about the structures, diffusion, and reactions of muonium, and by inference, hydrogen in semiconductors. Little is known about isolated hydrogen in semiconductors, despite the importance of hydrogen in semiconductors relating to its passivation of electrically- active defects. ESR and ENDOR studies have had little impact on the study of hydrogen. Muon studies given data similar to ESR and ENDOR and permit drawing detailed structural inferences. Both the effects of charges which are not neutral and neutral muonium in other materials, and nuclear hyperfine measurements will be studied yielding structural information.